Chemical, Mineralogical and Fabric Evolution of the Lower Stanley Shale, Ouachita Mountains

The Mississippian Stanley Shale exposed in the Ouachita Mountains of Arkansas and Oklahoma exhibits surprising bulk chemical characteristics that are probably related either to metamorphic processes or to hydrothermal alteration. The west to east increase in metamorphic grade seen in the Ouachitas is paralleled by bulk chemical changes including depletion in Mg, Ca, Na, K, and Ba, and relative enrichment in Al and Li. The increased Al content is reflected in an increased abundance of aluminous phases such as chloritoid and pyrophyllite. The changes in bulk chemistry suggest that the Stanley may have exported material to surrounding terrains. It is necessary to evaluate the processes that may have led to the chemical and mineralogical changes recorded in the Ouachitas. To do so involves a study of the differences in bulk chemistry, mineralogy, and fabric that exist between diagenetic Stanley in the western Ouachitas and greenschist facies Stanley in the eastern Ouachitas. In particular, this research will document changes in fabric, bulk chemistry and isotopic tracers that may be useful in estimating volume loss and evaluating the extent to which the Stanley was an open system during diagenesis/metamorphism.